Travel Awards for US based participants to attend the workshop "Model Theory 2013", June 10-15, 2013, Ravello, Italy

The proposal requests for travel funds to support US participants, particularly
graduate students and recent Ph.D.s, to attend the international
workshop Model Theory 2013 that will be held June 10-15 in Ravello Italy.

One of the objectives of this workshop will be
bringing together researchers in Model Theory and other areas of mathematics where
model theory has had significant applications. By presenting and discussion problems
as well as recent advances in these areas we hope to facilitate further interactions.

Another goal of the workshop is to provide an informal setting where graduate students and younger researchers from US
can learn about new trends and interact with one another as well as with prominent senior
mathematicians. There will be three tutorials on recent developments
in Model Theory given by experts and aimed mostly at young researchers.

The workshop is expecting participation from a large number of
graduate student and recent Ph.D.s.
Besides providing an opportunity for researchers to exchange ideas and discuss open problems, another
equally important goal of the workshop is to foster interaction among
graduate students and recent Ph.D by providing a setting
contacts with junior and senior researchers are naturally and easily made.

More information about the workshop can be found on its webpage
http://logica.dmi.unisa.it/Ravello/